Model Checking of Software Systems

Software systems keep growing in size and complexity. Our reliance on such systems is likewise increasing, making it critical that they obey the properties their designers intended. Because these properties are global, their consideration cannot be left to the implementation of modules; rather, they must be ensured by design early on. Achieving critical properties thus depends on being able to analyze designs, so that the consequences of design choices can be explored without the cost of implementation, and potentially disastrous flaws can be caught while their repair is still relatively cheap. Analysis methods based on formal, rather than informal, techniques are amenable to mechanical reasoning. Formal methods have had a dramatic impact in hardware verification -- principally due to the success of model checking -- and are being adopted by industry. In software development, on the other hand, formal methods have not yet had the same impact. This is largely because little tool support has been available. Almost any analysis of a software specification seems to require theorem proving. Theorem proving is not feasible for most software developments, since it requires highly skilled proof experts, and cannot be automated fully. Without automatic analysis, formal specification is much less attractive to practitioners. This project has two aspects. First, it investigates the application of model checking techniques to software. This involves both the identification of appropriate abstract representations of large systems, along with the properties they should obey, and the invention of new abstraction techniques to relate such representations to software designs. The abstraction techniques pursued in this research arise in three ways: (1) from the form of the property to be checked (for example, merging states to preserve a universally quantified property); (2) from the application area (for example, not distinguishing the varieties of failure in a distribu ted system); and (3) from the application itself (for example, abstracting the data held in cache lines in the evaluation of a cache protocol). Second, new checking techniques are being developed for specifications that are not currently well served by model checking. Software designs often involve operations on complex data structures that are defined implicitly. In this case, there is no apparent model to be checked; rather, it is necessary to generate models from the specification and determine whether they satisfy intended properties. The project is developing a language, NP, that is roughly a subset of the Z specification language, and a checker, Nitpick, that can both simulate the execution of operations specified implicitly and check inductive properties of operations, by generating models of a relational formula. While emphasizing principles that are expected to find broader application, the project is driven by realistic case studies: railway switching, telephone features, and security protocols. ***